STEM Practice-rich Investigations for NGSS Teaching (SPRINT)

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

STEM Practice-rich Investigations for NGSS Teaching (SPRINT) is an exploratory project that will research and develop resources and a model for professional learning needed to meet the demand of implementing the Next Generation Science Standards (NGSS). The Exploratorium Teacher Institute will engage middle school science teachers in a one-year professional learning program to study how familiar routines and classroom tools, specifically hands-on science activities, can serve as starting points for teacher learning. The Teacher Institute will use existing hands-on activities as the basis for developing "practice-rich investigations" that provide teachers and students with opportunities for deep engagement with science and engineering practices. The results of this project will include: (1) empirical evidence from professional learning experiences that support teacher uptake of practice-rich investigations in workshops and their classrooms; (2) a portfolio of STEM practice-rich investigations developed from existing hands-on activities that are shown to enhance teacher understanding of NGSS; and (3) a design tool that supports teachers in modifying existing activities to align with NGSS.

SPRINT conjectures that to address the immediate challenge of supporting teachers to implement NGSS, professional learning models should engage teachers in the same active learning experiences they are expected to provide for their students and that building on teachers' existing strengths and understanding through an asset-based approach could lead to a more sustainable implementation. SPRINT will use design-based research methods to study (a) how creating NGSS-aligned, practice-rich investigations from teachers' existing resources provides them with experiences for three-dimensional science learning and (b) how engaging in these investigations and reflecting on classroom practice can support teachers in understanding and implementing NGSS learning experiences.